FAW: Economics of Firm Behavior: Evidence from Regulated Industries

This award provides support to Dr. Nancy Rose under the National Science Foundation's Faculty Awards for Women Scientists and Engineers Program. The objectives of this program are to recognize the nation's most outstanding and promising women scientists and engineers in academic careers in research and teaching, to retain them in academia, and to facilitate the further development of their careers. This award will allow the investigator to pursue two important projects. The first involves the investigation of three major questions in the area of industrial organization, making use of the wealth of data created by airline regulation and the policy shock created by deregulation in 1978. The questions to be analyzed are: (1) What is the extent of price discrimination and how is it affected by market structure? (2) What determines firms' product quality choices? and (3) How does entry into markets affect competitive interactions and what does this reveal about theories of oligopoly behavior? The second project will explore the impact of government risk management on firms in the financial service sector. The questions to be analyzed include (1) What managerial objectives do financial service firms pursue? and (2) How did the increased competition resulting from the regulatory reforms and technology changes of the late 1970's and early 1980's affect bank and thrift portfolio risk strategies? This research will develop empirical models of firm's risk preference behavior that will be interest both to scholars studying firm behavior and to policy makers interested in designing effective government risk management strategies.